Theoretical Particle Physics

Theoretical particle physics is concerned with understanding matter
and energy at its most fundamental level. The field is just now
entering an unusually interesting phase. After more than twenty years
of repeated and stunning success, the "Standard Model" of subnuclear
physics is almost certain to fail in the next round of high-energy
experiments, beginning an era of intense discovery that will
dramatically deepen our understanding of the fundamental physics.
This imminent revolution will be addressed from three directions.
First, detailed analyses of Standard Model predictions will be used
to look for discrepancies that would provide hints about the new
physics that is to come. These discrepancies are most likely in rare
processes, such as the radioactive decays of elementary particles,
and in highly precise calculations of the electromagnetic properties
of such particles as the electron-like muon. Second, new numerical
methods will be further developed for analyzing theories in which the
forces between elementary particles are very strong. These methods
are essential for precise analyses of the Standard Model (and for the
large experimental programs at SLAC, Cornell, etc.), and could also
be essential for understanding the new physics to come --- strong
forces are a quite common, almost generic feature of particle
physics. Finally, there will be wide-ranging exploration of
theoretical possibilities for the new physics, including such options
as exotic new properties, like "supersymmetry", or extra directions
in space-time. Central issues concern the relationship between
quantum mechanics and gravity ("string theory"), and also between
particle physics and cosmology. A fourth component of this project
is interdisciplinary: Analytical and numerical techniques from
particle physics will be applied to important problems in condensed
matter and solid state physics.